MPWG: Women in Science Project

9353764 Pavone The Women in Science Project is an innovative program at Dartmouth College designed to encourage women who enter college with high interests in science (including math and engineering) to retain their interests and consider careers in these fields. The effort invites them to participate in a program of science research internships, seminars, discussion groups, peer mentoring with upper division women in science, industrial site visits, and a regular electronic newsletter that provides project cohesiveness. The overall goal of the project is to increase the number of women majoring in the sciences, math, and engineering at Dartmouth. An accompanying objective is to effect a general increase in the number of women enrolled in science and engineering courses, measured by enrollments in classes typically taken by second and third year students. This grant will fund a portion of the primary activity of this comprehensive model project--research internships for first year women. Research internships in the natural and physical sciences, math, and engineering offer: 1) an opportunity to work in scientific research during the first year; 2) one-on-one work with a faculty member, who can serve as a present and future mentor and role model; 3) "hands on" laboratory work and firsthand experience with scientific inquiry; 4) an important scientific experience complementary to introductory science classes; 5) an experience which de-mystifies and de-mythologies science; and 6) stipends to ensure the full participation of economically disadvantaged students. Objectives for the research internship program during 1993-94 are 1) to maintain the number of 2-quarter internship opportunities supported per year at approximately 70 and, 2) to evaluate the internship experience to better articulate and document why and how it operates as an effective retention strategy within the overall project. The Women In Science Project represents a very important initiative in hi gher education and addresses a significant problem, the under-representation of women in the pursuit of science. The project's research internship offer first-year women an unusual opportunity to experience the process and methods of scientific inquiry. The project has been enthusiastically received by students and faculty, and is readily replicable. Through careful evaluation and documentation of the internship process, this strategy can be readied for dissemination. Research and literature support the soundness of the project's design. A comprehensive understanding and documentation of the value, effectiveness, limitations, and complexity of the internship program and process, gleaned from the evaluation component, will have three major types of beneficial outcomes. First, it will provide information to guide how the internship model might be improved, revised, and enhanced at Dartmouth. Second, it will facilitate replication of the model at other institutions interested in encouraging and sustaining the interest of women in the sciences. Third, it will contribute to a knowledge base of what factors and program components can best support women's participation and retention in the sciences, to assist other research and implementation efforts in this area. NSF will support stipends and materials/supplies for 25 of the 70, 2-quarter research internships that will be offered in academic year 1993-94, an in-depth evaluation of the internship program, and a portion of the administrative costs of the project staff. Internal institutional budgetary support and external support from corporate partners and foundations will contribute the remaining support for the internship program as well as support the costs of the other programs within the comprehensive strategy. ***